The Introduction of an Atomic Absorption Spectrophotometer into the Chemistry Curriculum to Strengthen Laboratory Instruction

A Varian SpectrAA-10B Atomic Absorption Spectrophotometer and an accompanying computer-based data station is being used to introduce the principles and techniques of atomic absorption spectrophotometry into the curriculum at a number of levels. Specific course improvements being made include: Introduction of the atomic absorption method into introductory chemistry as a technique for the determination of the sodium content of over- the-counter medications and for the determination of the lead content of solutions of lead iodide; Demonstration of the principles of operation of an atomic absorption spectrophotometer and its analytical applications in an instrumental analysis course; and Use of atomic absorption spectrophotometry in independednt study and in summer research programs. The equipment is also being used in the annual summer chemistry program for advanced high school students. The grantee is matching the award from non-Federal sources.